Acquisition of a High Performance Computer for Materials Modeling

A state-of-the-art multi-processor computer (CONVEX SPP-1000/16) would be acquired with the Academic Research Infrastructure Program funds. The present 4-processor machine would be replaced with the CONVEX 16 processor machine. The new machine would be utilized for problems ranging from basic and fundamental problems to finite element modeling in materials processing and the design of new materials using computer simulations. The research topics include the modeling of extended lattice defects; modeling of the mechanics of interfaces, plastic constitutive properties and fracture; modeling of complex materials such as multimolecular assemblies, pure and doped fullerenes and metal-ammonia systems; vibrational relaxation on surfaces and simulation of semiconductor/water interfaces. The faculty associated with these research projects have excellent links with industry. The research group has a Research Partnership with the CONVEX Corporation. A state-of-the-art 16 parallel processer computer will be employed in a wide range of materials problems ranging from fundamental problems such as charge transport in complex materials such as fullerenes and metal-ammonia solutions to paractical problems involving the mechanics of interfaces, plastic constitutive properties and fracture and the chemical stability of liquid-semiconductor interfaces.